SHF: Small: Computer-Aided Synthesis for Distributed Algorithms

Formal verification techniques are used to exhaustively test a
given design to detect if it has any possible undesirable behavior.
Formal verification is a powerful paradigm since it can detect
hard-to-find errors in a design that testing alone is unlikely to
find. However, formal verification techniques can not be used on
an incomplete design. This project explores the question of whether
such methods be extended to help in the design process by completing
a partial design and synthesizing correct systems. Such formal methods
can have a broad impact by influencing the design and correctness of
a wide variety of distributed systems.

This project develops a general approach for formal model synthesis,
called bounded model synthesis, and applies it to do computer-aided
design of fault-tolerant distributed algorithms. Computation is becoming
increasingly distributed, but designing correct, especially fault tolerant,
distributed algorithms is an extremely challenging task.
The bounded model synthesis approach provides tools that can help
developers perform systematic design of distributed systems.
The technical approach consists of lifting verification techniques,
such as bounded model checking and k-induction, to perform model
synthesis. This project develops, implements, and evaluates the
bounded model synthesis approach.